Nonlinear Wave Loads on Offshore Structures

ABSTRACT J. N. Newman MIT CTS-9416096 This project will develop new theoretical and computational methods for analyzing the interaction of steep ocean waves with offshore platforms, in the regime where the waves are relatively long but their amplitude is comparable to the platform cross-sectional dimensions. This will extend our recent analysis which is restricted to a single vertical circular cylinder, and is expected to provide a quantitative understanding of the phenomenon of `ringing' which has been encountered in experiments and prototype measurements. Appropriate time-domain panel methods will be used to solve for the first-order velocity potential in a prescribed incident wave system. From this linear solution the forcing function for the third-order potential will be computed on the free surface, and the resulting inhomogeneous free-surface condition will be solved by a second application of the panel method. In the latter application a relatively large number of free-surface panels are required, and it will therefore be very effective to make use of the Order-N Laplace solver FASTLAP. The corresponding wave loads and integrated forces and moments will then be computed, both for simple and practical structures, and compared with existing measurements.